CAREER: Developing Asymmetric-Polarization AC Electroosmosis for Lab-on-a-chip

The research objective is to develop and validate an electrokinetic lab-on-chip for
robust and rapid detection of low concentration bioparticle (eg. virus, bacteria, cells) in
water, food and clinical samples. The research tackles the long-standing bottleneck
issues of sensitivity and selectivity for such detection. The approach is: 1) to differentiate
bioparticles by their response to electrokinetic transport based on various charge/mass
ratio, 2) to rapidly enrich local particle concentration by expediting bioparticles' diffusion
to sensors with convection, and 3) to quantify particle concentration by impedimetric
measurement while incorporating electrokinetic signal amplification. The above
functions are to be realized by asymmetric-polarization AC electro-osmosis, which is
newly discovered and at the forefront of electrokinetic microfluidic research. Such lab-on-
a-chip operates at small voltage with low power consumption, and its all electrical
processes facilitate portability, parallelism and automation for on-site bioparticle
detection.
Bioparticle detection is of great significance because bioparticles often serve as
carrier/indicator of pathogens and/or toxins. As the world becomes increasingly
concerned with toxin/pathogenic contamination in food, water and environment from
infectious diseases and bioterrorism, and because the threat of pathogen/toxins to
societies could be substantially mitigated with early detection, the demand for rapid
bioparticle detection is expanding for both civilian and military applications. The PI
proposes a novel electrokinetic lab-on-a-chip to detect bioparticles at low concentrations.
The research will not only lead to a practical detection chip but also afford students a
unique opportunity to explore the state-of-art of interdisciplinary research in
microsystem, bio/chemi/electronics and microfluidics.